Conference: Poisson Geometry 2026

Poisson 2026 Summer School and Conference will be held at the University of Antwerp and KU Leuven in Belgium from August 3-14, 2026 . This award will provide partial support for U.S.-based participants to attend this international event, which focuses on Poisson geometry, a mathematical framework connecting ideas from geometry, algebra, and mathematical physics. By combining an introductory summer school with a research conference, the project lowers barriers to entry into a highly active area of mathematics while helping to build a diverse and well-connected international research community. Broader impacts include advanced training for graduate students and postdoctoral researchers, expanded international engagement for U.S.-based mathematicians, a public lecture accessible to general audiences, and freely available online recordings that will extend the reach of the program worldwide.

The scientific program has two complementary components. The summer school will feature five mini-courses introducing core topics and recent developments in Poisson geometry and related areas, aimed primarily at graduate students and early-career researchers. The conference will include approximately twenty plenary lectures by leading researchers presenting current directions, recent advances, and open problems. The program emphasizes interactions among Poisson geometry, symplectic geometry, Lie theory, noncommutative geometry, and mathematical physics. It also prioritizes support for early-career U.S. participants and broad international visibility, with a strong emphasis on mentoring, networking, and dissemination through recorded lectures and a planned special journal issue. Additional information is available at: https://wis.kuleuven.be/events/2026poisson/poisson2026